Basic Ionization, Airglow and Auroral Processes

9320175 Dalgarno Theoretical procedures will be used to interpret molecular spectroscopic data in terms of a potential matrix which can then also be employed to make reliable predictions of low energy atomic collision processes. Collisions of oxygen and nitrogen atoms will be investigated. The role of energetic atoms produced by dissociative recombination in the atmosphere will be explored and the rate coefficients of reactions involving hot atoms will be studied. Calculations will be carried out of the quenching of vibrationally excited molecular oxygen. Calculations will be carried out of the Rayleigh and Raman scattering of molecular oxygen in the region of the discrete Schumann-Runge bands. ***